Backward Error Compensation Algorithms and Their Applications

The investigator proposes the study of back and forth error compensation
and correction methods (BF) and their applications, in particular, to the
level set method (Osher and Sethian, 1988) for interface computation in
fluid dynamics and image processing etc. The level set equation and the
associated redistancing equation (Sussman et al., 1994) are usually solved
by high order non-oscillatory schemes (e.g., ENO, WENO). In addition,
special techniques can be used in order to reduce the diffusion near
singular points of the interface, such as the particle level set method
(Enright et al., 2002). BF was initially developed by Dupont and Liu (2003)
as a simple technique for reducing the diffusion in solving the level set
equation. Further improvements are being developed with more and more
promising results. When applied to the Zalesak problem (rigid rotation
of a slotted disk), it approaches the resolution of volume of fluid
methods, e.g., Youngs 1982 etc, and is simple with low computational cost.
Some special properties are being found such as that when applied to some
unstable schemes, it not only stabilizes them but also improves their
accuracy. The investigator plans to collaborate with Todd F. Dupont and
other researchers to further study this algorithm and its variants and
applications. The particular issues examined in this proposal include:
(1)further study of the properties of BF and the error and stability
analysis of BF for irregular meshes; (2)the combination of finite element
method and level set method with BF on triangular meshes; (3)further
development of BF for level set method with applications in fluid dynamics
and computer graphics; (4)study of possible applications of BF for other
differential equations such as the Schrodinger equation.

The proposed activity in this project involves new methodologies in
computational mathematics and opens new possibilities. The research
approach will be a combination of theoretical analysis and their
applications. An integrated cross-disciplinary curriculum will be developed
suitable for students majoring in mathematics, physical sciences and
engineering. The new methodologies developed in this project will enlarge
the numerical recipes and can be applied to fluid dynamics, interface
computation and their applications like atmospheric dynamics, ocean flow,
ocean floor gas hydrate, crystal growth, biological fluid dynamics, elastic-
plastic solids, astronomy, computer graphic, image processing, etc. The
research results will be disseminated through conference presentations
and publications. Progress in this project will also enhance the
interaction among several subfields including level set method, finite
element and finite difference methods etc.